Acquisition of a 600 MHz NMR Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of California in Santa Cruz will acquire a 600 MHz NMR Spectrometer. This equipment will enable researchers to carry out research in a number of areas, including a) characterization of bioorganic compound mixtures; b) the role of protein signaling and folding; c) radical reagents; d) new chiral synthesis tools; e) metal ions in metalloenzymes and therapeutics; and f) dynamics of active site iron in lipoxygenases.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic chemistry and biochemistry.